Purchase of a Nuclear Magnetic Resonance Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at The University of Southern California will acquire a 400 MHz Fourier Transform NMR Spectrometer. This equipment will enable researchers to carry out research on the following: 1) activation and functionalization of alkanes; 2) development of new molecules and polymers for optical and photonic applications; 3) bio-organic probes and bio-active organophosphorus compounds; 4) selective functionalization of hydrocarbon CH bonds catalyzed by homogeneous metal complexes; 5) new synthetic methods and synthesis of bioactive molecules; and 6) studies of carbocations and related chemistry.
Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry, biochemistry and materials chemistry.